Experimental Studies of the Dynamics of Strongly Correlated Plasmas

The research is divided into two parts; 1) low dimensionality effects on melting, and 2) stick-slip experments in 2-d crystals. The PI will search for a possible intermediate hexatic state between liquid and solid and study the response of 3d structure's to mechanical stress. The approach should be able to yield direct measurements of exact individual particle dynamics and provide answers to many fundamental questions.